A New Phase Transfer and Palladium(0) Catalyzed Method

This starter grant award to the University of Minnesota supports the research of Professor George O'Doherty. The research is directed toward a new phase transfer and palladium(0) catalyzed method for the introduction of fluorine-18 radioisotopes into biologically important molecules. The reaction of interest is a palladium(0) catalyzed allylation of fluoride using various allyl carbonates. This method for introduction of fluorine to organic substrates may replace older methods that require expensive, toxic, and explosive reagents, resulting in significant environmental benefits. The research aims at developing a procedure that is so expedient and clean that it can be used for positron emission tomography, a technique which enables the investigation of small volumes in biological systems. The ultimate application would be study of the movements of molecules through membranes and other intra-cellular events. ¢ ┴?╝, ºÁ¥Á╝?│`│%`>Á¢ /╝Á │`│%╣│ ║?%`/%,`>Á¢ ¥©/¥ ╣> /┤┤╣¥╣?> ¥? │/╝▓?> │?>¥/╣> / ┤╣ÂÂÁ╝Á>¥ Á%Á_Á>¥ ?╝ ©Á¥Á╝?/¥?_ ¼©Á ¢`¢¥Á_¢ ╣>└Á¢¥╣À/¥Á┤ ©Á╝Á │?>¥/╣> ¥©╝ÁÁ /%,`>Á¢ %╣>,Á┤ ¥?ÀÁ¥©Á╝ ┴╣¥© ¥©╝ÁÁ ¢║/│Á╝¢ ?>Á ?Â ┴©╣│© ╣¢ ¥©Á ©Á¥Á╝?/¥?_ ¥? Â?╝_ / ║%/>/╝ _Á_▓Á╝Á┤ ╝╣>À ¼©Á │/└╣¥` ?Â ¥©╣¢ ╝╣>À ?╝ ║?│,Á¥ └/╝╣Á¢ ╣> ¢╣:Á /¢ ¥©Á ©Á¥Á╝?/¥?_ │©/>ÀÁ¢ (?╝Á Á%/▓?╝/¥Á ¢¥╝┐│¥┐╝Á¢ │/> ▓Á Â?╝_Á┤ ▓` %╣>,╣>À ©Á¥Á╝?│`│%╣>Á¢ ¥?ÀÁ¥©Á╝ ¢? ¥©/¥ ¥©Á` │?>¥/╣> ┐║ ¥? Â?┐╝ ║?│,Á¥¢ ¼©Á │?_║?┐>┤¢ │/> ▓Á _/┤Á ╣> / │?>¥╝?%%Á┤ ┴/` />┤ ▓┐╣%¥ ┐║ ¥? %/╝ÀÁ╝ ¢¥╝┐│¥┐╝Á¢ ¥©/¥ ©/└Á │?>┤┐│¥╣>À />┤ %╣╗┐╣┤ │╝`¢¥/%%╣>Á ║╝?║Á╝¥╣Á¢